Seismic Monitoring of the 9N East Pacific Rise RIDGE 2000 Integrated Studies Site

An array of twelve ocean-bottom seismometers will be deployed within the 'bull's-eye' region of the Ridge 2000 East Pacific Rise integrated studies site at 9 degrees 50 minutes north. The character of near-axis faulting will be studied, the seismically active hydrothermal system will be mapped, the seismic character of any magmatic activity will be observed, and tidal triggering of seismicity will be studied. The work is coordinated with other multidisciplinary monitoring in the area and the results will be released as rapidly as possible.